Mathematical Sciences: (1) Extremal Cayley Digraphs on Finite Groups; (2) Monomial Conjecture - A Computational Approach

9406959 Ma The Department of Mathematics at the Southwest Texas State University will purchase a SUN SparcServer 1000 which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for several research projects, including in particular: 1.) Extremal Cayley Digraphs on Finite Cyclic Groups, proposed by Xingde Jia; and 2.) Monomial Conjecture - A Computational Approach, proposed by Yonghao Ma